Mathematical Sciences: Status and Future Directions

This study will provide an update of the National Research Council 1984 report, Renewing U.S. Mathematics: Critical Resource for the Future. It will consist of an evaluation of the progress to date on the recommendations of the 1984 report together with an assessment of the current status of the infrastructure for research, a brief description of the current scientific status of research, a summary of the most exciting current research opportunities, and a set of recommendations for the future research and personnel directions in the mathematical sciences.